Undergraduate Curriculum Development in Advanced Computing

This project supports the development and application of a general interdisciplinary undergraduate course in advanced computing that can be adopted at many colleges and universities. The principal investigator, Dr. Dan Sulzbach, is a staff member at the San Diego State University. The course will be developed by Dr. Sulzbach and Dr. Kris Stewart, a faculty member at San Diego State University and first utilized at San Diego State University which is a member of the twenty campus California State University system (CSU). After testing at SDSC the course will be distributed to the other CSU campuses via a one-week workshop. In 1992 a workshop for faculty from U.S. colleges and universities and a symposium at SIAM will be held to foster the distribution of the course in other institutions.